I/UCRC for Crack Propagation Based Life Prediction of Mechanical Components in an Integrated Analysis Environment

This Research Opportunity Award funds a project, "Crack Propagation Based Life Prediction of Mechanical Components in an Analysis Environment" at Prairie View A & M University in support of the University of Iowa's Industry/University Cooperative Research Center for Simulation and Design Optimization of Mechanical Systems. This two year project is reporting to the Center's Industry Advisory Board. The project is developing an integrated crack propagation life prediction capability system dynamic analysis for load prediction, finite element analysis for stress prediction, and fatigue crack propagation analysis for fatigue life prediction. The feasibility of automating this crack propagation life prediction method for mechanical components is being demonstrated in an integrated analysis environment. The Principal Investigator is competent and has the facilities to perform the research. The Program Manager recommends that Prairie View A & M University be awarded $100,000 for two (2) years.